Collaborative Research in Computational Neuroscience (CRCNS) PI Meeting 2009

The PIs and Co-PIs of grants supported through the NSF-NIH Collaborative Research in Computational Neuroscience (CRCNS) program meet annually. This will be the fifth meeting of CRCNS investigators. The meeting brings together a broad spectrum of computational neuroscience researchers supported by the program, and includes poster presentations, talks and plenary lectures. The meeting is scheduled for June 7-9, 2009 and will be held at Carnegie Mellon University and the University of Pittsburgh.